Presidential Young Investigator Award: Formation and Oxidation of Carbon in Diffusion Flames

This research is concerned with the formation, growth, and eventual oxidation of soot particles in diffusion flames. The work will have both experimental and theoretical parts. The experiments will be conducted on a steady, planar, counterflow, laminar diffusion flame. The investigated parameters will be fuel concentration and temperature, oxidizer concentration and temperature, and pressure level. The theoretical work will focus on modeling soot formation and oxidation in the limit of low soot volume fraction.